CRII: III: Multiresolution Tensor Learning for Scalable and Interpretable Spatiotemporal Analysis

A Framework for Scalable and Interpretable Spatiotemporal Data Analysis

The past few decades have witnessed an explosion of large-scale spatiotemporal data.
At the same time, domain experts and policy makers need data analysis tools that are explainable
in order to trust and deploy them. However, analyzing spatiotemporal data is highly challenging,
as such data often demonstrates complex correlations, high dimensionality, and contains multiple
spatiotemporal resolutions. Meeting this challenge will require new methods that can handle highly
correlated data, generalize to higher dimensions, and reason at different granularities.
To address these challenges, this project will develop a spatiotemporal data analysis framework
that is both scalable and interpretable. The project will apply this framework to tackle challenging
problems in climate informatics, sports analytics, and intelligent transportation. This project will
establish a large-scale spatiotemporal data repository and distribute open source software to benchmark
research progress. The educational component will develop new courses geared towards the intersection of
machine learning and spatiotemporal analysis. Additionally, the principal investigator plans to continue outreach activities
that involve giving tutorials, organizing workshops at relevant conferences.

The long term goal of this project is to improve the scalability and interpretability of
spatiotemporal analysis tools. The principal investigator has initiated a framework of tensor learning that
can capture higher-order correlations and address high-dimensional issues. This project will
significantly expand the framework to exploit the multiresolution nature of spatiotemporal data.
In particular, the principal investigator will develop a multiresolution tensor learning framework and integrate this
framework into existing models, including latent factor models, Gaussian processes and graph neural
networks. This approach leverages fast tensor optimization algorithms to recognize spatiotemporal
patterns at multiple granularities. This project will lead to novel techniques to automatically
discover latent semantics, quantify uncertainty, and learn feature representations from
spatiotemporal data in a scalable and interpretable fashion. It will further contribute
to our burgeoning understanding of advanced optimization and statistical tools such as
multigrid optimization, tree-based Gaussian processes and geometric deep learning.